Getting Unstuck: Designing and Evaluating Teacher Resources to Support Conceptual and Creative Fluency with Programming

The project will create opportunities for teachers to develop programming content knowledge and new understandings of the creative possibilities in computer science education, thereby increasing opportunities for students to develop conceptual and creative fluency with programming. K-12 introductory programming experiences are often highly scaffolded, and it can be challenging for students to transition from constrained exercises to open-ended programming activities encountered later in-and out of-school. Teachers can provide critical support to help students solve problems and develop the cognitive, social, and emotional capacities required for conceptually and creatively complex programming challenges. Teachers - particularly elementary and middle school teachers, especially in rural and Title I schools - often lack the programming content knowledge, skills, and practices needed to support deeper and more meaningful programming experiences for students. Professional development opportunities can cultivate teacher expertise, especially when supported by curricular materials that bridge teachers' professional learning and students' classroom learning. This research responds to these needs, addressing key national priorities for increasing access to high-quality K-12 computer science education for all students through teacher professional development.

The project will involve the design and evaluation of (1) an online learning experience for teachers to develop conceptual and creative fluency through short, daily programming prompts (featuring the Scratch programming environment), and (2) educative curricular materials for the classroom (based on the online experience). The online experience and curricular materials will be developed in collaboration with three 4th through 6th-grade rural or Title I teachers. The project will evaluate teacher learning in the online experience using mixed-methods analyses of pre/post-survey data of teachers' perceived expertise and quantitative analyses of teachers' programs and evolving conceptual knowledge. Three additional 4th through 6th-grade teachers will pilot the curricular materials in their classrooms. The six pilot teachers will maintain field journals about their experiences and will participate in interviews, evaluating use of the resources in practice. An ethnography of one teacher's classroom will be developed to further contribute to understandings of the classroom-level resources in action, including students' experiences and learning. Student learning will be evaluated through student interviews and analyses of student projects. Project outcomes will inform how computer science conceptual knowledge and creative fluency can be developed both for teachers and their students' knowledge and fluency that will be critical for students' future success in work and life.